An Experimental Wireless Network with ATM Connectivity

9512376 Pahlavan The proposed project is to develop an experimental wireless network with ATM connectivity for multi-media applications. An experimental wireless campus test-bed will be used to construct a wireless classroom environment. In this classroom environment, the instructor presents his/her lecture material that is prepared on a personal computer through the electronic projector and an electronic board. Multi-media services including voice, text, and bit-mapped images will be provided to students dispersed over a small geographical area on the campus. The results of the experiment will have a multifold impact including the feasibility of access multi-media information using portable wireless terminals, the development of benchmarks specific to multi-media wireless network applications for future comparative performance evaluation of different wireless technologies, and the development of multi-media wireless networking protocols and mobility management algorithms. ***